Computational Methods and Function Theory Conference, 2005

0500614 Saff Conference

Abstract

The grant will support a US delegation of young Ph.D's and graduate students to participate in the conference entitled "Computational Methods and Function Theory '05," which will be held in Joensuu, Finland during the period June 13-17, 2005. The general theme of the meeting concerns the various aspects of interaction between function theory and scientific computation. Indeed, there is a synergistic relation between these subjects that will be further strengthened by the conference. The individuals to be funded will be selected by a group of outstanding senior researchers who plan to attend the conference. We expect five new Ph.D's and three graduate students who hold great promise of becoming future leaders in these fields of mathematics will be chosen to form the USA delegation.

The conference is the fifth in a series, following CMFT'89 (held in Valparaiso, Chile), CMFT'94 (held in Penang, Malaysia), CMFT'97 (held in Nicosia, Cyprus), and CMFT'01 (held in Aveiro, Portugal). Another common theme of these meetings is to foster the creation and maintenance of contacts between scientists from diverse cultures.